REU: Fine Root and Soil Organic Matter Turnover in C, N & P Cycling of Populus Plantations

Information on litter turnover (leaf and fine root), plant- soil interactions, nutrient cycling and soil organic matter dynamics is required to understand ecosystems managed for high biomass output such as agro-forest systems. In the first hypothesis for this project the processes regulating nutrient cycling and soil organic matter formation are addressed. This hypothesis will be tested by determining the contribution of leaf and fine root litters to microbial growth, nutrient cycling and soil organic matter accumulation. A new and innovative method of introducing tracers into young Populus trees makes it possible to follow the fate of C, N, and P from plant residues through the soil organisms into the active fraction of organic matter, and finally into the inorganic nutrient pool. Isotope distribution and dilution measurements can distinguish the allocation of C, N, and P into plant, litter (roots and leaves), and soil pools. The incubation of previously labelled plant and soil organic residues together with non-labelled substrates will allow us to test our second hypothesis. This addresses the controls in N and P mineralization. Can microorganisms specifically attack substrates to obtain N or P deficient but C rich conditions? Answering this question is crucial in determining the capacity of soil to provide nutrients for plant uptake via mineralization. Information from this project will be helpful in designing new management practices that promote self-sustaining nutrient cycles in high yield ecosystems. Populus plantations will be used as a model high yield ecosystem. The research team assembled for this work is excellent and well experienced. Facilities for the research are excellent. High rates of production of interesting and useful information may be expected.